Expanding Contemporary Scientific Instrumentation for Molecular Exercises in Biology

This project is upgrading laboratories in the upper-division biology core courses, chemistry, and the undergraduate student research program. These objectives are being met with the acquisition of fluorescence detection equipment that builds on and complements existing instrumentation. Laboratory activities, both improved and added, include B-galactosidase expression, DNA characterization, adenosine triphosphate measurement, cellular ion changes, chlorophyll identification, quantitation of nucleic acids, protein chemistry, enzyme kinetics, receptor assays, chemical experiments, and a number of techniques for undergraduate research projects. Also, implementation of these new laboratory experiences will expose students to sophisticated techniques that are rapidly becoming contemporary in biology and chemistry.